Fundamental Studies in Computer Integration of Design and Construction

Computer integration of design and construction activities can dramatically increase efficiency, by eliminating duplication of data and effort, reducing errors, decreasing design-construction time, improving scheduling, providing better management information, etc. However, before true computer integration can become a reality, many theoretical and practical problems must be resolved. There are two types of integration to be considered, and two sides to the problem. The two types of integration are: a) vertical, across the planning, design, construction and operation phases, and b) horizontal, across disciplines in each of the phases (e.g. in the design phase, across architectural, civil, structural, mechanical and electrical disciplines). Two specific research activities will be executed, one quite narrow and specific, and the other broader. The narrower topic is concerned with the design of a database to support integration of structural design and construction, and specifically with the key role that connections play in this database. The broader topic, concerned with representation and processing of facts, rules, and procedures will be limited to clarifying basic concepts and identifying needs and techniques. The research is expected to make the following contributions: 1) The state of the art of design- and construction-related database design will be advanced. 2) The state of the art of knowledge processing for integrated software systems will be advanced. The techniques which have been developed only in theory, or only for problems not related to construction, will be explored, and their appropriateness for construction applications will be assessed. This will help form a foundation for efficient development of Computer Integrated Construction systems. 3) Closer collaboration and communication will be developed between researchers who have similar broad interests but are in widely different disciplines. Collaboration and communication will also be cemented between industry and the university.